A Low-Energy X-Ray and Gamma Detector for the Advanced Physics Laboratory

Calvin College will strengthen the undergraduate physics program by the purchase of a low-energy X- and gamma-ray solid-state spectrometer. It will enrich the experience of juniors and seniors in their laboratory and research courses, by making it possible for them to perform classic experiments in atomic and nuclear physics, and also to perform individual research projects involving ionizing radiation.